PECASE: Collaborative Negotiation Methodology for Large-Scale Infrastructure Projects

Feniosky Pena-Mora
9875557
ABSTRACT
---------

The objective of the proposed CAREER program is to develop a negotiation
methodology and tool for large-scale collaborative infrastructure projects.
The proposed methodology and tool will help: 1) organize negotiation
knowledge into a structure that enables systematic and scientific
exploration; 2) formally model the structural and substantive issues of
negotiations in large-scale infrastructure projects; and 3) understand and
model how communication technologies influence the pattern of such
negotiations. In addition, the proposed methodology and practical tool
will help engineers and designers establish negotiation strategies for
mitigating and resolving engineering conflicts in large-scale
infrastructure projects. Such a comprehensive negotiation methodology and
tool is expected to provide benefits for the entire life cycle of the
project by reducing costs, avoiding delays, eliminating counterproductive
negotiation plans, and improving negotiation skills among engineers working
on large-scale infrastructure projects.

In addition, the project will develop an integrated research laboratory and
classroom alliance aimed at improving the understanding of negotiation and
collaboration in the domain of large-scale engineering systems. This
effort will place tomorrow's communication and collaboration technologies
along with the understanding of how to use it most effectively, into the
hands of the next generation of professionals. This will be accomplished
through a unique research-industry-education-research feedback loop created
by the participation of five universities, two corporate entities, and one
public agency. The core of the research will be achieved through a formal
analysis cycle starting with information acquisition, formalization,
systematization, testing, refinement, and ending with information
dissemination. In this program, practice, research and education are
expected to work in an integrated fashion to understand and master
negotiation strategies in large-scale infrastructure projects requiring
collaboration between global teams.

The proposed program provides excellent benefits both, from the research
and educational perspectives in analyzing systematic negotiation strategies
for large-scale infrastructure projects. From the research perspective,
the key intellectual contribution of this work is the acquisition,
formalization, systematization, testing and dissemination of a partially
formalized structure of the existing negotiation knowledge, where the
fundamental questions about collaboration and negotiation could start to be
answered. From the educational perspective, the proposed class will
provide a forum in which the impact of a negotiation methodology addressing
the issues of time and distance on project life cycle will be explored.
Finally, the class will include the participation and guidance of seasoned
industry professionals in a controlled environment with real-world data.